The Use of Digital Systems to Improve Cartography and Map Technology

Improved instruction in cartography and map technology is being accomplished through the recent acquisition of digital system instrumentation for the existing mainframe computer. The digital stereo restitution instrument adds time-effective instruction in photogrammetry for exercises involving mensuration and aerotriangulation. The digitizer permits the addition of digitizing techniques to the Introductory Cartography course, and is used as an integral part of instruction in Advanced Cartography. The interactive editing station gives students in Advanced Cartography and Photogrammetry experience in contemporary editing techniques. The mainframe, by producing output on the graphics plotter, provides a substantial improvement in computerized mapping instruction.